Engineering Research Experience for Women and Minority Undergraduates

The College of Engineering at Texas A&M University has a REU program for ten women and minority students. The REU program is conducted in conjunction with an ongoing Undergraduate Summer Research Program, sponsored by the Texas Engineering Experiment Station for the past nine years, and the Minority Engineering Program. Students for the REU Program are selected from institutions that have predominantly minority enrollments including the University of Texas at El Paso, University of Texas at San Antonio, Pan American University, University of Puerto Rico, and Prairie View A&M as well as Texas A&M University, with at least half from other institutions. Individual research projects are undertaken by the undergraduate students in conjunction with on-going research programs, and regular faculty involved in these programs serve as advisors for the participants' research activities.